Structural Analysis of Laramide Strike-Slip Faulting Along the Eastern Margin of the Kaibab Uplift, Colorado Plateau

9706028 Davis A critical unresolved problem in tectonics is in understanding how intraplate regions deform. The origin of Colorado Plateau structures, especially folds over reactivated faults, is a primary avenue of approach to this problem in this type area of intraplate deformation. This study of Davis is aimed at identifying the role of the newly discovered strike-slip faulting as well as normal faulting in the evolution of the East Kaibab fault-fold system. In this study, Davis will map in detail and make detailed structural analysis of selected portions of the system such that issues of structural and strain compatibility within an oblique-slip system to be evaluated along strike and down dip. The results of this study will bear on the relationships of basement faulting to folding, and of the kinematics and mechanics of the propagation of a fault zone through a mechanically inhomogeneous stratigraphic sequence.